Doctoral Mentoring Consortium at the 24th International Joint Conference on Artificial Intelligence (IJCAI 2015)

The project funds attendance of US-based graduate students to the doctoral consortium at the International Joint Conference on Artificial Intelligence (IJCAI). The goals of doctoral consortium are for students to discuss research, have an opportunity to talk about their research, build professional connections with other researchers, and receive individual mentoring from a senior member of the community.

The outcomes of the project will be assessed with pre- and post-surveys administered to the students. Special efforts will be made to select students from underrepresented groups and from smaller groups who have fewer opportunities to interact with international researchers. Participation will help graduate students network with other researchers, and develop into global scientists. In the longer term, this will help advance science and high-tech industry.